Doctoral Dissertation in Law and Social Science: Judicial Impact on Attorney Advertising

A considerable amount of research on law and public policy has concerned decisionmaking processes and various inputs into the political and legal system with an underlying assumption that mandated changes have their desired effect on the populace. In recent years, however, this assumption has been challenged by a number of scholars seeking to understand the impact of governmental decisions on society. The impact of judicial decisions, or what happens after courts render policy, has spawned a large body of research focused primarily on those responsible for interpreting and implementing judicial decisions. This dissertation research seeks to expand knowledge of judicial impact by exploring responses at the individual level of those most directly affected by a change embodied in a particular governmental decision. Specifically, the student will analyze attorney responses to the United States Supreme Court decision of Bates v. State Bar of Arizona (1977). In Bates, the Court disallowed a blanket prohibition on attorney advertising but did permit some regulation by the states. No specific behavior was mandated of lawyers, and thus the effects of the decision offers a vehicle by which to explore judicial impact. Accordingly, advertising by attorneys in four different states will be examined. Three competing theoretical explanations pertaining to economic incentives, the influence of state bar regulations, and attitudes will be tested on the basis of survey and interview data. The analysis will focus on why some lawyers and their firms altered their behavior in light of the change in the status quo and others did not. Conclusions will be drawn about the ultimate effectiveness of judicial decisions which do not mandate action but open previously prohibited avenues of behavior. Such a study has the potential to facilitate a broader interpretation and theoretical understanding of the impact of law across institutions.